VIGRE: Undergraduate, Graduate, and Postdoctoral Education in Mathematics at the Courant Institute

The Mathematics Department in the Courant Institute of New York University
will provide significant opportunities for research and graduate education
through its academic programs, under the support of the VIGRE program of
the National Science Foundation. This support will be used to integrate
the postdoctoral and Ph.D. programs at the Courant Institute, together
with research experiences for honors undergraduates in mathematics. This
integration will be founded upon focused research groups at the Courant
Institute, which exist in disciplinary mathematics -- such as differential
geometry, symplectic geometry, geometric and topological analysis, the
analysis of partial differential equations, dynamical systems theory,
probability theory and mathematical physics, computational science and
numerical analysis, and applied mathematics; as well as in
interdisciplinary science -- such as neural science, vision, biophysics,
computational biology, plasma physics, multimedia technology, materials
science, condensed matter physics, fluid mechanics, atmosphere/ocean
science, and financial mathematics. Each of these research groups uses
advanced graduate courses, seminars, working seminars, and workshops to
foster interactions and to exchange knowledge. Mathematicians from
neighboring academic institutions, industrial laboratories and from Wall
Street, often interact with and contribute to these groups. Interactions
between members of the faculty, postdocs, Ph.D. students, and advanced
undergraduates will be developed through active membership in these
research groups. Junior scientists will be trained and encouraged to
advance a view in which artificial boundaries between pure and applied
mathematics do not exist, and in which interdisciplinary research is the
norm.

The Courant Institute's VIGRE Program will provide support for 9 postdoctoral scientists and 24 graduate students each year. Postdoctoral participants will gain breadth and depth through the Courant Institute's uniquely interdisciplinary environment. Each will be encouraged to develop his or her own scientific personality and vision over the course of a three-year appointment. In addition, each postdoc will gain classroom skill and experience by teaching one course per semester, with supervision by an expert in pedagogy as well as by a member of the faculty. Graduate students will be drawn quickly into the scientific life of the Institute through participation in various research groups. They will be encouraged to do internships in nonacademic environments such as industrial and government research labs, to gain added scope and perspective. They will learn communication skills through a variety of mechanisms, including supervised classroom experience. Undergraduate math majors will be encouraged to participate in an enriched honors program, featuring diverse research experience opportunities. The honors program will help draw
talented undergraduates into quantitative careers, by communicating the
many opportunities and great excitement available in mathematics and
interdisciplinary science. Some specific developments associated with this
VIGRE project include: (i) the creation of undergraduate research
opportunities within research groups at the Courant Institute; (ii) the
formalization of internship opportunities in industrial and government
laboratories and in nearby medical schools, for undergraduate and graduate
students; (iii) systematic supervision of graduate student and postdoc
teaching, by professionals in pedagogy as well as by members of the
mathematics faculty; (iv) more active recruitment of US citizen and
permanent resident candidates for graduate and postdoctoral support, with
special emphasis on women and other underrepresented groups.

Funding for this award is provided by the Division of Mathematical Sciences and the MPS Directorate's Office of Multidisciplinary Activities.